Travel Support for U.S. Participants to the 10th Int. Workshop on Nonideal Plasmas

Travel support for students and postdoctorals is provided for the 10th Workshop on Nonideal Plasmas in Greifswald, German, Sept 4-10, 2000.